Laser-Excited Lanthanide Ion Luminescence in Chemistry and Biophysics

This project will be supported jointly by the Biophysics Program and the Inorganic, Bioinorganic and Organometallic Chemistry Program. The focus of the project is the exploitation in chemistry and biophysics of the information about individual metal environments in solution which can be obtained from the luminescence which occurs as a result of laser excitation of the lanthanide metal ions terbium(III) and europium(III). Imporant biological information, such as the distances between calcium ion binding sites in blood proteins, can be obtained from studies of the luminescence of these lanthanide ions when they are substituted for the native metal ions. Laser-excited lanthanide ion luminescence techniques will be developed further to determine the extent to which measured parameters of the luminescence (intensities, frequencies, lifetimes, splittings) can be used to obtain information about the number of distinct species present, the total charge on the ligands surrounding Eu(III), the site symmetry of the ion, the number of coordinated water molecules, energy transfer rates, and ligand exchange kinetics. Energy transfer between luminescent lanthanide ions and various freely-diffusing inorganic acceptor ions in solution will be investigated to provide an understanding of the mechanism of resonant energy transfer. The accessability of solvent to Ln(III) ions bound to macromolecules will be probed, and the use of Eu(III) luminescence as a probe of the interaction of DNA in its various conformations with metal ions will be assessed. The structure of t-RNA, its metal ion binding characteristics, and interactions with target molecules will be explored also using these methods. An investigation of model membrane systems (phospholipid bilayer vesicles) will establish the basic interactions of metal ions with these systems and allow the study ofionophore-mediated transport of metal ions. The basic coordination chemistry of Eu(III)-hydroxo species and several novel chelating agents with potential applications as ionophores, nmr imaging agents and immunoassay labels will be explored. A new class of macrocyclic ligand, crown sulfoxides, will be synthesized and complexation with Ln(III) ions explored.